Arabidopsis Thaliana as a Model for the Study of A Self-Incompatibility, Diversification of Floral Architecture, and Evolution of Inbreeding

M.E. Nasrallah (PI) and J.B. Nasrallah (co-PI)
Proposal #: IOS-0744579
Arabidopsis thaliana as a model for the study of self-incompatibility, diversification of floral architecture, and evolution of inbreeding

How cells sense and respond to other cells is a central question in biology. The study of well-defined plant cell-cell communication systems is important for elucidating developmental mechanisms as well as the processes that ensure reproductive success and determine evolutionary potential. Genomic heterozygosity, or genetic variation, increases the ability of plants to adapt to changing environments. It is no wonder therefore that plants have evolved a number of devices that promote out-crossing, thereby enhancing genetic variation and fitness. One of these devices is self-incompatibility, a genetic mechanism that prevents self-fertilization. In a field of mustards (belonging to the crucifer family), a large number of variants at the self-incompatibility (S) locus exist, resulting in extensive mixing of the gene pool and the generation of many new combinations of the genetic material. Just as in our own ability to distinguish between hundreds of fragrances and odors, these plants use receptor and ligand proteins encoded in the S locus to distinguish self-related from non-self related (cross) pollen, allow development of cross pollen tubes, and inhibit that of self tubes. This project aims to understand the molecular processes underpinning the out-crossing and selfing reproductive strategies in crucifers, using molecular genetic approaches in self-incompatible plants that were recently engineered in the normally self-fertile Arabidopsis thaliana model species. Knowledge of the molecular genetic basis of these processes is critical for effective utilization of the germplasm available in a species for breeding crops tailored to particular environments. More generally, the results are expected to help answer the key question of how organisms adapt by modifying their developmental programs to generate novel designs in structure and function. The project also provides many opportunities to integrate teaching and research, and to train undergraduates, graduates, and post-doctoral fellows able to tackle the challenges of a rapidly changing world.